SGER: Feasibility of Using Ground Penetrating Radar to Estimate Heart Rot Volumes in Living Tree Stems

NONTECHNICAL SUMMARY
SGER: Feasibility of Using Ground Penetrating Radar to Estimate Heart Rot Volumes in Living Tree Stems
Michele Pruyn, John Butnor, Mark Harmon, Michael Ryan and David Shaw

This proposal seeks funding to evaluate the applicability of ground-penetrating radar to quantify heart rot volumes in living trees (Pseudotsuga menziesii, Thuja plicata and Tsuga heterophylla). Heart rot decomposition by saprophytic organisms of the central core of dead wood (i.e. heartwood) within living tree stems accounts for a substantial percentage of total disease loss in U.S. forests, causing destruction or decreased value of usable timber and the depletion of heartwood carbon reserves in living trees. Currently, precise methods for predicting the magnitude of heart rot volume and the associated carbon losses are lacking. The objective of this research is to apply the technique of ground penetrating radar (GPR) to enable the exact determination of heart rot volumes (active and inactive zones) in living trees. The proposed research will test the hypothesis that heart rot losses are highest during the middle stages of succession (100-200 years), when sound wood is being degraded, as opposed to in older stands where heartwood is already extensively decayed and hence inactive, or in younger stands where heart rot is not yet present in large volumes. GPR estimates of sapwood, sound heartwood, decaying heartwood, and heart rot void volumes in downed and felled tree stems will be compared to actual volume measurements from cross-sectional pieces of the same logs, dissected with a chainsaw. To determine the extent and range of heart rot activity within the active zones, respiration measurements of intact and dissected stems will be taken using gas exchange techniques.

Broader impacts of this SGER award include the application of ground-penetrating radar to quantify the extent of heart rot in living trees, a novel approach. If successful, GPR will provide the first quantitative, nondestructive approach to quantifying the extent of heart rot. The research builds on ongoing research at the Wind River canopy crane site in Washington state, focusing on mature and old-growth conifer forests.